DIALM-POMC Joint Workshop on Foundations of Computing

The DIALM-POMC Joint Workshop is devoted to discrete algorithms and
discrete modelling in the context of mobile and wireless computing and
communications. It is intended to be a lively meeting, covering many
of the algorithmic and discrete aspects of this field going from
operations research to radio engineering problems. It aims, in
particular, at fostering the cooperation among practitioners and
theoreticians of the field.
If this project is awarded, the funds provided by NSF to support
DIALM-POMC'2003 will be used to provide funds for inviting two renowed
speakers in the area of mobile computing to present at the workshop,
to allow for reduced registration costs for students, and to provide
travel support for students attending the workshop.